The Role of Nonlinear Interactions in Major Glaciation Cycles

Abstract ATM-9523965 King, Teresa University of Rhode Island Title: The Role of Nonlinear Interactions in Major Glaciation This award supports a study that will make use of a set of well- documented time series of climate system proxies in order to quantify the role of nonlinear climate system interactions in glaciation cycles. There are two related objectives: first, to quantify the extent to which variations between surface and deep ocean proxy data are spatially and temporally coherent during the Pleistocene, independent of orbital forcing; second, to objectively discriminate between linearly forced, nonlinearly coupled, and free, or internal, unforced variations. An additional benefit of this research effort will be a data archive resulting from the assembly of these many proxy time series.